A Proposal for Evaluation of the Center for Engineering Tribology at Northwestern University

9424108 Cheng This award provides funding for an evaluator to study the industry/university interactions occurring in Northwestern University's Industry/University Cooperative Research Center for Tribology. The Center continues to meet the renewal criteria to remain in the Industry/University Cooperative Research Centers Program. The evaluator has the experience necessary to perform this study, having published a number of refereed papers in technical journals on the topic of industry/university cooperative research and its evaluation. The Program Manager recommends Northwestern University be awarded $24,000 for 36 months.